Enumerative geometry and moduli

Questions of enumerative geometry, which seek to count geometric objects, are as old as mathematics itself. For example, Euclid found one line between two given points in the plane, and Apollonius found eight circles mutually tangent to three given circles in the plane. In the 1990s, Kontsevich's count of rational plane curves of any degree opened the door to deep connections between enumerative geometry and theoretical physics. In modern terms, the answers to enumerative problems are encoded in the geometry of moduli spaces, which are “meta” geometric spaces which themselves parametrize geometric objects, such as plane curves. This project, driven in part by active mentoring of undergraduate and graduate student researchers, will probe the geometry of several families of moduli spaces of current interest, with an eye toward applications to enumerative problems.

More specifically, the project will center around two lines of inquiry. First, the PI will investigate natural cycle classes on moduli spaces, such as d-elliptic loci on moduli spaces of abelian varieties and torus orbit closures on flag varieties. These investigations will aim toward far-reaching conjectures on quasi-modularity and positivity, respectively, revealing new structures within these moduli spaces. Second, the PI will develop transversality theorems for moduli spaces of curves on higher-dimensional varieties, such as toric varieties and hypersurfaces. While the prospect of such theorems is inspired by classical Brill-Noether theory, their implementation will harness the full power of modern techniques concerning degenerations of algebraic varieties. Both threads will feed directly into the study of enumerative problems, cycle class calculations being necessary to compute cohomological intersection numbers, and transversality theorems being needed to convert intersection numbers into genuine counts of geometric objects.